Workshop to Establish a Forum for Innovative Bridge Research

The objective of this project is to outline and coordinate research projects in bridge engineering, in order to avoid duplication with other Federal and State agencies.